Dissertation Research: Landscape Controls on Stream ChannelResponse to Floods in a 5th Order Watershed in the Western Oregon Cascades

John M Faustini Oregon State University The doctoral dissertation research will test dominant hypotheses about controls on mountain stream channel morphology using unique long term data sets from the H.J. Andrews LTER site. The hierarchical study design involves scaling up from the channel unit scale by characterizing channel morphology, relating channel response to fluvial processes, and interpreting channel morphology and response to floods at cross-section sites in relation to geomorphic context. The work will also evaluate geomorphic thresholds as predictors of the type and magnitude of channel response. Use will be made of an existing data base of over 1400 cross section measurements spanning the period from 1978 to 1996. Additional work will supplement this data base. The relationship between observed channel/valley floor responses and indices of landscape structure and condition will be explored using a GIS analysis. The results will provide an improved understanding of mountain stream channel dynamics which is critical in a theoretical sense but also for siting and design of engineered structures.